CSR: Small: Telescopic Analysis for Black-Box Troubleshooting of Distributed Systems

This project is developing scalable mechanisms to debug, monitor, and
assess the quality of the complex distributed systems that represent
the backbone of modern software infrastructure. These methods are
necessarily highly-automated; they reason about the operation of
distributed systems while treating the components of such systems as
black boxes. This means that the methods do not require source code,
programmer annotation, or developer input to troubleshoot a
distributed system. Instead, they rely on detailed information
gleaned from pre-existing log messages that are nearly ubiquitous in
every large-scale distributed system and data extracted via binary
analysis of components as they run.

These new methods, termed telescopic analysis, combine the ability to
collect extremely detailed, low-level information about systems
executing large numbers of requests with "big data" analysis that
mines insights and create models of system operation from the corpus
of detailed observations. Telescopic analysis uses targeted,
sample-based logging and/or binary analysis to generate substantial
quantities of high-precision data about specific runs of the system
under observation. It then combines these observations into models
that capture the aggregate behavior of the system. Comparing the
general model with the detailed observations of each run allows
understanding of how that run conforms to or deviates from the common
operation of the system. The project is also developing tools and
query languages that allow understanding of the results of such
comparisons, both in aggregate and as pertains to specific runs, for
performance analysis, debugging data quality failures, understanding
outlier behavior, and performing "what-if" analysis.